Harmonic Analysis and PDE

PI: Sagun Chanillo, Rutgers University
DMS-0200628

Abstract:

In this proposal several problems are proposed, all in the field of
PDE. Most of these problems are in the sub-field of non-linear
PDE, and some in linear PDE. The non-linear problems
arise naturally from Physics and
Geometry and the interaction of Physics and Geometry.
The linear problems are also tied in with
Geometry and Physics. There
is a strong focus in this proposal on various qualitative
features of solutions to PDE, their level lines, nodal lines
of eigenfunctions, smoothness of solutions and so on.
We have selected the problems in part because we view many of them as having very natural connections with classical Harmonic analysis, and in fact we have made some start on solving them using techniques from classical Harmonic analysis. This is described in the body of the proposal. Some of the problems that arise from Physics in our proposal are connected with the phenomena of
vortices. Here we continue work that was funded by previous grants.
The vortices we study are those that arise from fluid flow on
two-dimensional spheres and on the plane. Taking the continuum limit of the
point vortex distribution leads us to a new technique for solving the prescribed
Gauss curvature equation which also gives a tremendous insight into conformally invariant PDE's. Problems are also posed
that stem from the Schrodinger equation and Geometry and its
influence on the spectrum of elliptic operators.

We single out an important component of the proposed research
proposal. In todays environment it has become important to
study so-called smart materials, more principally composites.
Because of their lightness they are preferred materials
to use for their strength and lightness. In this proposal
we study as one problem the vibrational characteristics
of composites. In particular how should one build objects using
composite materials so as to minimize their basic vibrational characteristics.
Intuitively the larger the natural frequency with which
an object vibrates, the more it is susceptible to stress
and breakage. For example one question one can ask is, if we need to
build a symmetric object like a washer does it
mean the composite has to be arranged symmetrically respecting
the symmetry of the washer? We find that in our research for example that
this necessarily does not minimize the stresses that can be caused by vibration
and we need to arrange the composite in a non-symmetric way
to construct the washer. This is not the only problem we study in our
proposal but also problems in Differential Geometry and Physics.